Travel To Attend: International Symposium on Electronic Devices Circuits & Systems, Kharagpur, India, December 16-18, 1987.

This grant is for international travel to attend the International Symposium on Electronic Devices, Circuits and Systems, to be held in Kharagpur, India from December 16 to December 18, 1987. The symposium will provide a forum for a broad technical exchange on research topics of current interest in the areas of computer networks, integrated systems digital network, computer vision, and artificial intelligence. The meeting will include plenary sessions, featuring speakers of international repute on various topics. U.S. representation at this meeting will provide insights relating to international competitiveness in the relevant areas, and could lead to areas of cooperation between India and the U.S. The P.I. will also take the opportunity to visit local research laboratories, as possible, to broaden his exposure.